Broadening Participation in Materials Science through Institutional Integration of a Masters-to-PhD Bridge Program at Fisk, Delaware State, and Vanderbilt Universities

We propose an innovative pathway to the PhD for substantially broadening the participation of underrep-resented minorities in materials science, linking multiple NSF-funded materials research programs (CREST and REU) at the partnering institutions. The nucleus of this I3 will be the Fisk-Vanderbilt Masters-to-PhD Bridge program, with its strong track record of enabling students to earn a Master’s degree at Fisk as a stepping stone to the PhD program at Vanderbilt. Vanderbilt and Fisk are joined in this I3 by Dela-ware State University (DSU). Our program’s path to the PhD emphasizes research engagement and de-liberate mentorship by faculty at PhD-granting institutions to help students cross the aspirational and insti-tutional transitions.
We will directly address all of the I3 program goals. In so doing, with the I3 funding requested here we will enable at least 2 underrepresented minority graduate students toward the PhD in Materials Sci-ence each year, representing ~20 times the national institutional average. Over the 5 years of requested I3 support, this represents 10 individuals supported by I3 funding who will complete, or be on the path to-ward completing, the PhD. By itself this is a substantial, tangible result of our innovation and integration and a vital contribution to the STEM workforce.
Arguably even more important for the long-term sustained impact and institutionalization of this program, and the eventual expansion of our Masters-to-PhD Bridge model into additional STEM disci-plines, will be the foundation laid here for truly understanding how best to design the architecture of our model to ensure successful portability into new disciplinary and institutional contexts.
We will:
1.
Expand the Fisk-Vanderbilt Masters-to-PhD Bridge Program to include Materials Science. Key faculty have been identified as the “bridge builders” following the model of the existing program in physics. Leveraging significant institutional support already in place, we will ex-pand and deepen the footprints of our NSF-funded CREST projects and enhance their sus-tainability.
2.
Extend the Bridge Program in partnership with Delaware State University. The resulting Fisk-Vanderbilt-DSU Masters-to-PhD Bridge Program will permit students to transition from the MS at Fisk to the PhD at Vanderbilt, from the MS at Fisk to the PhD at DSU, or from the MS at DSU to the PhD at Vanderbilt. The result will be increased synergy and collaboration across our NSF-funded CREST and REU programs, reducing the artificial boundaries that can so often impede student mobility across educational junctures.

Broadening Participation in Materials Science through Institutional Integration of a Masters-to-PhD Bridge Program at Fisk, Delaware State, and Vanderbilt Universities brings together NSF/EHR awards from the IGERT and CREST programs, as well as other work, around the I3 integrative themes for broadening participation, critical educational junctures, and the integration of research and education.